Preparation of Paramagnetic Ligands for Coordination -Complexes and Networks with Interesting Magnetic Properties

This award made in the Office of Special Projects deals with the design, synthesis and characterization of metal coordination complexes and networks with interesting magnetic properties. Emphasis will be on the synthesis of arylene and polyarylene rings bearing two or three o-quinone or semiquinone structures which, depending on their oxidation state will be paramagnetic and capable of binding to high-spin octahedral transition metals. In the semiquinone state, the ligands will be radical anions so that their metal complexes will not require any supporting counterions. The resulting neutral, three dimensional complexes and networks will exhibit strong coupling in three dimensions and should exhibit bulk magnetism. The ligands and complexes will be characterized by cyclic voltammetry, electron paramagnetic resonance, crystallography and magnetometry. Organic molecular magnets are an area of high academic as well as technological interest. Success of this project will advance the fundamental understanding of the molecular basis for magnetism. Additionally, air-stable, light weight organic magnets will find numerous commercial applications ranging from small electric motors to information storage.